GOALI: Double-Gate Silicon on Insulator (SOI) Devise Consideration for Nano-Scale Design

0221126
Ioannou

This is a proposal to carry out research on the interaction between device physics and circuit design using nano-scale double-gate SQI CMOS technology. Fully depleted, double-gate (FD-DG) S0I is currently recognized as the most suitable SOI version for nano-scale integration. Published research has focused on the physics of the device in isolation, in an effort to establish and examine the many attractive advantages, and connect them with the device design. However, viewed from the circuit point of view, more often than not these advantages come at the expense of higher capacitances and leakage currents, which (if unchecked) might degrade the circuit performance and reliability. It will be the central theme of the proposed research to seek out the subtleties of the devise design most relevant to circuit implementations, with the ultimate goal to skew the device design space towards better circuit performance, and suggest suitable circuit alternatives that derive maximum benefit from the use of DG devices. For example, it is not known a priori that the enhanced drive current of the DG transistor will make up for its enhanced capacitance, and one needs to examine the circuit topology for each of the DG structures available. Since DG structures suffer less from short channel effects (SCE) and supply double the current, thicker oxides can be used, which also lower the gate capacitance. Floating body effects (FBE) are thought to be inactive in DG structures; FBEs might, however, be triggered by deliberate (or otherwise) bias conditions, for example by inducing an overpopulation of holes in the body of an nMOS device. DG devices are currently been vigorously researched and evolving, and are commonly categorized as symmetric (SDG) and asymmetric (ADG). The SDG is a "normally on" device and for this and other reasons the favor is currently with the ADG device. Rather than modify the SDG device at the expense of complicated processing, the possibility will be investigated of using this intrinsically on structure as a load device for DG-SOI based ratioed logic, with ADG drivers.